Learning Scientific Reasoning Skills in Computer-Augmented General Biology Laboratories

Exploring complex topics in general biology laboratories is often impossible due to economic, technical, ethical, or time constraints Students work algorithmically from rigid manuals, mimicking scientific practice without understanding it. Rarely do they learn that science is a dynamic, problem-solving activity as opposed to a collection of laws and facts. Funds from this award will be used to develop a new computer- based laboratory curriculum for general biology, designed to emphasize open-ended problem-solving activities that more closely resemble what scientists actually do. Students will be involved in posing, testing and evaluating hypotheses, and in communicating their ideas to their peers. Graphics-oriented computer workstations, equipped with production software (e.g. spreadsheets and custom simulations of biological systems, will be used by students as tools to practice science. Activities will include: (1) use of spreadsheets and statistical packages to help organize data, discover patterns, and test hypotheses; (2) use of flexible simulation environments ("lab construction kits ") that provide an electronic toolbox of components from which students can design their own experiments; and (3) establishment of an electronic journal with students and faculty working together as editor and reviewers. The grantee institution is matching this NSF award with funds from non- Federal sources.